SGER: Machine Learning by Combining Knowledge and Adaptation

In this exploratory research, an incremental-learning rule- based neural network is developed using bounded weight modification and structural adaptation. Data information stored as clusters can be incrementally updated by adding cluster-based processing units to the neural network. Learning theory suggests that rule-based neural networks employing the CF-based activation function require smaller sample sizes for correct generalization than standard multilayer perceptrons. Experiments for evaluating the learning capacity and sample complexity of such systems are to be conducted. This research is intended for building expert systems with the capabilities of automatic inference and life-long learning in a wide range of domains.